Ocean/Cryosphere Interactions Along a Shelf to Deep-Sea Transect Adjacent to the Former Hudson Strait (N.W.T.) Ice Stream: Northwest Atlantic

The effects of the sediment and meltwater fluxes from the Laurentide Ice Sheet on the North Atlantic are greatest where these are concentrated for reasons of ice sheet dynamics and/or topography. Detailed isotope stratigraphy, combined with AMS 14C dating, shows that the transition from glacial to interglacial conditions contains significant irregularities, e.g.the Younger Dryas stadial event. This award will continue amulti-parameter investigation of cryosphere/ocean interactions at the margin of the Hudson Strait ice stream. The study focuses on a suite of cores from 1000 to 2000 meters in the northwestern Labrador Basin. Methods include: detailed AMS dating, stable isotopic and sedimentological analyses, with the aim of documenting meltwater and sediment fluxes from the ice sheet, and into the North Atlantic Ocean. The cores can be placed in a firm stratigraphic context because of the availability of high-resolution Huntec acoustic records.